Conference Support Services for SBE Program (Task Order #31 for Contract DGC 92-16105)

9317559 Linsky The purpose of this task plan is to provide travel and conference support and a workshop proceedings document for the Directorate on Social, Behavioral and Economic Sciences (SBE). N-BioS will subcontract with Courtesy Associates to provide travel arrangement assistance and N-BioS will provide administrative support, some conference support and technical editing of the workshop proceedings document.